Nonlinear Systems and Numerical Methods for HJB Equations

9971546
McEneaney

The research is proceeding along two directions within the general area of
control and estimation for nonlinear systems. The first direction involves a
new class of numerical methods for such problems. Specifically, note that
one of the most persistent difficulties with control and estimation of
significantly nonlinear systems has been computational cost. Dynamic
programming methods for H-infinity control and risk sensitive stochastic
control lead to nonlinear PDEs (typically Hamilton-Jacobi-Bellman
equations) which must be solved over some region of the state-space.
Since the number of state variables can be quite high, the dimension of the
regions over which one needs to solve these PDEs increases. This restricts
the set of problems for which one can compute such controls to those with
very low state-space dimension. By changes in the underlying definitions
of addition and multiplication certain classes of nonlinear Hamilton-
Jacobi-Bellman equations are transformed into problems with linear semi-
groups. This property has led us to new methods that exploit this linearity.
For instance, certain steady-state problems lead to spectral methods for
linear problems (over the new algebras). It is hoped that the possible
improvements in speed with these methods will lead to an ability to solve
a wider range of problems. Some simple examples are already being
tested. The second direction involves risk averse limits in nonlinear
control systems. It is now well known that risk averse limits of risk
sensitive controllers lead to robust/H-infinity controllers. However, the
classes of systems for which this has actually been proven is rather small,
and does not include most typical problems. We have recently obtained
some uniqueness results that should allow one to extend the risk sensitive
limit results for infinite time-horizon problems to a reasonably wide class.
Analogous work on risk sensitive limits in the estimation problem is
beginning as well.

Many modern systems, from active automotive hydro-suspension systems
to fighter aircraft, behave in a significantly nonlinear manner. These
systems require active control in order to perform at increasingly
competitive levels. There is a serious technical challenge in that the design
of nonlinear controllers requires extremely heavy computational loads. In
fact, the computation of controllers where the number of system state
variables is more than two or three has been unattainable in general. The
difficulty is that these computations require the solution of a nonlinear
partial differential equation over a space whose dimension is that of the
number of state variables. A recent advance is the observation that, despite
the nonlinearity, the propagation of these solutions is often still linear IF
one switches to the max-plus algebra in place of the traditional definitions
of addition and subtraction. In the max-plus algebra, traditional addition is
replaced by maximization, and traditional multiplication is replaced by
addition. One of the goals of this project is to exploit this max-plus
linearity to extend the class of nonlinear systems for which we can design
active controllers.